Implementation and Evaluation of a Parallel Text Searcher for Very Large Databases

This project concerns the application of the Utah Retrieval System Architecture to very large databases of full-text documents. This effort involves the development of a mediumscale (4 to 10 GBytes) parallel backend search server using augmented RISC processors as the searching engines. Data is being gathered and analyzed to determine if the existence of a high-speed search server changes the complexity and arrival rate of queries by real users (law students). In addition, a suitable partitioning of functionality such that remote users can be supported by such a searching engine over medium-speed networks (such as ISDN) is being studied. The researchers are also examining how the system can be reconfigured to deal with disk and searcher failures.